Industry/University Cooperative Research Center for Information Management - Evaluator Support

9424106 McCracken This award provides funding for the evaluators to conduct a study on the industry/university interactions occurring in Georgia Institute of Technology's Industry/University Cooperative Research Center for Information Management. The P.I.s both have a well- established and wealthy experience in performing he proposed tasks. The Program Manager recommends the Georgia Institute of Technology be awarded $8,000 for the first year of a three-year continuing award.